Constraining Models of Coronal Mass Ejections (CMEs): Comparisons with Solar and In-Situ Observations

A combined global magnetohydrodynamic (MHD) model of the solar corona and inner heliosphere will be used to interpret SOHO and Yohkoh solar observations in addition to ACE and Ulysses in-situ measurements of coronal mass ejections (CMEs). SAIC's global model will be employed to initiate the CME disturbance and follow its evolution out to 20 solar radii. NOAA/SEC's heliospheric model will subsequently pick up these structures at 20 solar radii and propagate them out to 5 AU. Thus a global context will be constructed wherein one may connect the disparate solar and in situ observations. A unique and powerful perspective is thus provided to address fundamental issues concerning the origin, magnetic topology, and space weather evolution of CMEs. The events identified for simulation are to be selected by the SHINE community, and the simulation results will be available to the community on-line, in order to enhance the scientific return of this investigation.